A Master of Science Program in Astronomy for Advancing the Science Skills of Middle-and Secondary-School Teachers

This project provides a summer institute for granting Master of Science in Astronomy degrees to middle and secondary school teachers. The model involves the use of astronomy as a framework within which participants' knowledge of mathematics, physics, and chemistry, and their skills in classroom teaching, are enhanced. The curriculum includes refresher courses in physics, solid geometry, and pre-calculus mathematics. The studies progress through calculus and differential equations, and to more advanced physics, astronomy, and chemistry. The program also contains seminars on teaching methods, laboratories, and exercise development. Laboratory and classroom demonstrations are featured, along with exercises and visual aids that the participants can use in their own classes. The participants will also be familiarized with useful computer software. Each fall, the participants return to their home schools with an assortment of tools to enrich their teaching. They keep in touch with institute staff by a computer bulletin board system based on the University of Arizona's internal computer conference network.